NSF Group Travel Grant

abstract Proposal No: 9727005 Proposal Type: Request for International Travel Principal Investigator: Anthony H. Skelland Affiliation: Georgia Institute of Technology The International Symposium on Liquid-Liquid Two-Phase Flow and Transport Phenomena will take place in Antalya, Turkey from November 3-7, 1997. The conference is sponsored by the International Center for Heat and Mass Transfer. The objective of the symposium is to provide a forum for the exposure and exchange of ideas, methods and results in liquid-liquid flow heat and mass transfer. Symposium topics include liquid-liquid systems and applications, flow patterns and characteristics, flow stability and transitions, liquid-liquid separations, measurement and instrumentation, surface phenomena and bio-systems. The conference will promote the exchange of ideas between international scientists. The grant will provide the expenses of four speakers from the U.S. who have been invited to present plenary lectures. These speakers will also present lectures on their work at selected universities in Turkey.